WORKSHOP: Convening the first symposium-workshop on landslide Ecology - A perspective from tropical mountainscapes

A symposium-workshop is proposed on
Landslide Ecology - A perspective from Tropical Mountainscapes that has three main goals:
First, to expose ecologists to a conceptual model that emphasizes deep connections between
ecosystem and geomorphic processes, and the resulting large-scale dynamics of tropical
mountains mediated by landslides. Bringing together experts with diverse backgrounds to think
about their own landslide work in a broader context is a first step towards breaking down barriers
within and among disciplines. Second, to share the limited, yet diverse work on landslide ecology
with an audience coming from nations in which landsliding is a relevant process. The ecologists
participating in this symposium-workshop use diverse techniques (field and lab work, tree ring
analysis, remote sensing, GIS, and modeling) to examine a diverse array of questions in
mountain systems world-wide. Lastly, to outline a strategic program that will contribute to a
sustained growth of the field of landslide ecology, and more broadly speaking of emerging fields
linking biology with geosciences.

Broader impacts - The proposed symposium-workshop will bring together for the first time
students and faculty investigating the influence of landslides on tropical and subtropical montane
ecosystems, catalyzing at the same time the establishment of a network of collaborators. In
addition, the symposium-workshop is meant to challenge ecologists to think of ways in which
ecosystems influence this geomorphic process by exposing them to the physical aspects
underlying the formation of landslides. This symposium-workshop has been programmed as part
of the annual meeting of the Association for Tropical Biology and Conservation, Kunming,
China, and therefore it is expected to have a multiplicative effect. In fact, this meeting attracts an
audience for which mountains and landslides are important. The results of this symposiumworkshop
will be published, and in addition, the summaries will be posted on a web page
(http://ursula.cnnet.upr.edu/landslides/) that will focus on landslide ecology. Overall, this
symposium-workshop will highlight the contribution that ecologists can make to understand a
large-scale geomorphic process with evolutionary, ecological, environmental, and societal
implications.